NSF Symposium to Celebrate the International Year of the Ocean and Volume to Commemorate the 50th Anniversary of NSF

9809271 Urban The Ocean Studies Board (OSB) will organize and host a symposium in the fall of 1998 to celebrate the history of basic ocean research at the NSF as part of the International Year of the Ocean. In the year following the symposium, a report will be published based on symposium papers supplemented by other background materials and personal histories that will document the progress of ocean sciences over the past 50 years and NSF's role in achieving that progress. The report will not include any recommendations from the Board, although individual authors may express personal opinions.